3-D Quantitative Imaging and Correlation by Spatially Incoherent Chromatic Interferometry

Proposal Number: ECS-9810102 Principal Investigator: Y. Fainman (University of California San Diego) Title: 3-D Quantitative imaging and Correlation by Spatially Incoherent Chromatic Interferometry Abstract The proposal is to study the use of newly developed diffractive optical components to perform 3-dimensional profiling optically and quickly for application in reconfigurable manufacturing system. The proposed research will have significant impact on the next generation manufacturing technologies as it will allow integration of on-line parts inspection in real time into manufacturing systems.